EAGER: Space-Time-Pulsed Engineered-Excitation For Diffraction-Free Imaging

Fluorescence imaging in live animals is transforming brain science. However, the light that travels through
brain tissue undergoes unwanted scrambling or its trajectory as the tissue becomes thick, which ultimately
alters the original direction of travel. Thus, it remains a challenge to obtain clear, high-resolution images of
the brain for fluorescence imaging at depths beyond the thickness of human hair. This work will develop a
new type of optical microscopy—space-time-pulsed engineered-excitation for diffraction-free imaging
(SPEEDI)—that makes use of exotic space-time wave packets (STWPs), which have been found to resist
scrambling by objects encountered along its travel path. Experiments pursued will incorporate various types
of tissue specimens, and results will be compared to those obtained us other conventional types of
microscopy techniques. The project will also provide a platform to recruit students from diverse
backgrounds to learn about microscopy. Scientific concepts learned from the project will also be integrated
into an existing optics course.

The proposed technology will allow imaging across all Neocortical layers using one-photon (1P) sources,
which are significantly more affordable than multiphoton sources, broadly enhancing accessibility. SPEEDI
would be able to provide 1P imaging at depth with cellular precision without surgical removal, and it would
enable depth-resolved use of 1P-optimized indicators, including the next generation voltage indicators. As
SPEEDI is based on utilizing a new type of optical field, all of the advantages afforded from using twophoton
and three-photon sources would also apply, e.g., further enhancement of penetration depth and
signal-to-background ratio. In addition, the novel level of control obtained by modifying the underlying
spatiotemporal spectral structure of SPEEDI enables exquisite manipulation of the properties of the STWPs
in space and time, providing diffraction-free and dispersion-free propagation (of any order in the time
domain), tunable group velocity, and temporal focusing over short distances in any medium. This level of
exquisite control of the spatiotemporal properties will permit the introduction of ultra-high group-velocity
dispersion (GVD) into the space-time wave packets (STWP), which will broaden rapidly on a controllable
length scale even in free space or a low-GVD medium. Therefore, by first introducing group-delay
dispersion (GDD) into the initial generic pulse used to synthesize the STWP, the GVD enables the temporal
focusing of the pulse at a prescribed depth. Indeed, the focusing depth can be tuned by either changing the
initial GDD or modifying the GVD introduced into the STWP, both of which can be realized electronically
with no moving parts.